Workshop: Landscapes, Genomics and Transgenic Conifer Forests, Durham, NC, November 17-19, 2004

Commercial use of genetically modified conifers is now underway with
field trials concentrated in the southern United States. Opposition has
ranged from requests for a planting moratorium to threats of
ecoterrorism. This tension will only grow as genomics continues to
provide gene discovery available for genetic modification. Similarly,
policy has not progressed as fast as technology. By default,
agricultural policies cover forest management in the US yet few decision
makers are clear about the many ways in which genetically modified
forests deviate from GM food crops. Balanced, open dialogue is needed to
find common-interest solutions.

The 2004 Nicholas School Forum at Duke University will open dialogue
about genetic composition of US forests. Attendees will identify
emerging issues for forest genomics portfolios, ecosystem interface,
landowners, regulations and community perspective. The forum has
attracted inclusive participation by science writers, employees of
biotechnology firms and timber corporations, non-government activists,
students, university faculty, state and federal government officials and
foresters. Eminent international speakers will broaden perspective on
this regional and national issue. Forum organizer Claire Williams and
her colleagues will complete an edited volume entitled 'Landscapes,
Genomics and Transgenic Conifer Forests' to be published by
Kluwer-Springer by summer 2005. Our participatory forum on genetically
modified conifers is designed to catalyze similar venues in the US and
other countries.